Block Travel Grant for Students attending 1998 American Control Conference; Philadelphia, PA; June 24-26, 1998

9813620
Misra
The objective is to provide partial support for travel of students from U.S. universities attending the 1998 American Control Conference (ACC) to be held in Philadelphia, PA, USA, during June 24-26, 1998. The American Control Conference (ACC) is one of the largest control engineering conference in USA. The 1998 ACC will cover a wide range of topics dealing with theory and applications of control engineering. Typically, the topics covered by the conference include control theory, robotics, manufacturing, guidance and flight control power systems, process control and control engineering education.
***